Entropy and Same-Different Conceptualization

Animal Behavior Program

Non-technical Abstract

Title: Entropy and same-different conceptualization

PI: Wasserman, Edward A.

Proposal #: 9904569

Dr. Wasserman and Dr. Young will study the acquisition and application of an abstract
concept by a nonprimate species - the pigeon. Pigeons will be taught to
choose one key when the items of a multi-item display are all the same as
one another and to choose a second key when the items are all different
from one another - a "same-different" discrimination. Previous
experimentation has suggested that the pigeon's discrimination performance
is a function of the variability, or more precisely the entropy, of the
visual displays. In ten experiments, the will seek to better understand the
acquisition of the same-different concept, to explore the generality of the
acquired same-different concept, to study the role of spatial organization
in same-different discrimination learning, and to elucidate the role of
entropy in same-different conceptualization.

This has the potential to disclosing new and important parallels between human and animal cognition, and in demonstrating that even the most advanced forms of cognition can be given precise and rigorous explanations. Documenting that even pigeons are capable of abstraction and that deterministic computational principles may lie at the root of this complex cognitive process should help stimulate neuroscientists to uncover the biological mechanisms of this amazing ability.